Mathematical Sciences: Conference on Operators and Function Theory: The Role of de Branges's Spaces; April 13-15, 1989; Fayetteville, Arkansas

This project will support the Conference on Operators and Function Theory: The Role of de Branges's Space to be held April 13-15, 1989 at the University of Arkansas, Fayetteville, Arkansas. The focus of the conference will be a series of five lectures by Professor Donald Sarason on the interplay between operator theory and one-dimensional complex function theory. There will also be a series of ten forty-minute talks given by other speakers on the topic of the conference. Publication of Professor Sarason's lectures in book form is planned.